Studies of Chemical Processes Using Rydberg Atoms

Dunning is supported by the Experimental Physical Chemistry Program to continue his studies of chemical processes induced by high Rydberg atoms. A comprehensive study of the formation and properties of a variety of negative ion species will be performed, with emphasis on (1) the dynamics of dissociative electron capture at thermal and sub-thermal electron energies, (2) the lifetimes of autodetaching species and their stabilization by energy transfer via interactions with a second body, (3) the physical and chemical properties of dipole-bound negative ions, and (4) the search for quadrupole-bound negative ions. Outcomes from this research are expected to enhance the fundamental understanding of electron exchange between donor and acceptor systems.

A large number of chemical reactions involve the transfer of electrons between molecules. Rydberg atom collision methods provide new opportunities for improving the understanding of electron exchange processes leading to negative ions. Negative ions and their properties impact various practical applications, including plasma processing of materials and the development of nonconducting media for high-voltage electrical equipment.